Astronomical Research and Technical Support of Millimeter-Wavelength VLBI

Rogers, Alan E. AST-9727353 Funds will be used for the continued support of the astronomical research, technical development, and operation of the Coordinated Millimeter-Wavelength VLBI Array (CMVA) project. ***